NCTT: Community of Practice

The National Center for Telecommunications Technology builds on its regional partnerships to develop an Information and Communications Technology (ICT) Community of Practice (CoP) - bringing together an expanding group of academic and industry experts who are interested in creating a quality and industry relevant education for students in ICT enabled curricula. The CoP is a means to engage quality subject matter experts with faculty to keep the content and pedagogy of courses current and to quickly share and disseminate the insights nationally. Semi-annual conferences, blogs, webinars and podcasts provide opportunities for faculty professional growth. The CoP develops and validates ICT skill standards and curricula and provides an interactive workspace and dynamic library to make them available to others. The capacity of the present consortium of 14 regional partners working with 70 industries is to be expanded. The CoP also encourages participation by students and faculty underrepresented in the telecommunications field.